Nonlinear Dynamics of Oscillator Networks

Strogatz
0078074
In several branches of science and technology, one like
would like to imitate nature's success at designing networks that
can synchronize themselves. For instance, a semiconductor laser
array generates greater collective power when it synchronizes,
but such phase-locked operation is notoriously difficult to
achieve in practice. The investigator studies the nonlinear
dynamics of oscillator networks, using mathematical methods of
dynamical systems theory, bifurcation theory, and statistical
mechanics, along with numerical simulation. Three projects
explore how synchrony emerges in a group of dissimilar
oscillators, motivated by both biological and laser applications.
Areas of investigation include the stability of partial locking
in the Kuramoto model of coupled biological oscillators; the
dynamics of biological oscillators coupled by phase-response
curves; and phase-locking in slightly detuned laser arrays. Two
other projects address the relation between the connectivity of a
network and its ability to synchronize. Small-world networks,
which combine small diameter with large clustering, are
investigated to test whether they synchronize more readily than
lattices.
The goal of this project is to develop a deeper
understanding of complex systems that are made of many
oscillating parts and that manage to synchronize themselves. For
instance, the thousands of pacemaker cells in the heart always
fire in unison, even though they are all slightly different from
one another. Unfortunately, a similar kind of coordination
sometimes happens in the brain, where it leads to epilepsy. In
both cases, nature has provided us with examples in which
millions of cells begin to act in unison. By understanding
better how this synchrony is achieved, it should be possible to
design arrays of technologically important devices that can
synchronize themselves. Such self-synchronizing systems would
have important technological applications in many areas of
national interest, including environment (atmospheric pollution
monitoring uses sensitive detectors based on arrays of
oscillators), civil infrastructure (the proper functioning of the
national power grid depends on self-synchronization of the
generator network), and nanotechnology (where arrays of millions
of microscopic mechanical oscillators are being used in new
devices).